CISE Educational Infrastructrue: Integrating Computer Science Research Results Into an Interdisciplinary Undergraduate Curriculum

9312648 Cushing Under this project, the Evergreen State College, Oregon Graduate Institute of Science & Technology, and the Washington Center for Improving the Quality of Undergraduate Education will integrate into undergraduate curricula at Evergreen State recent research results in object-oriented databases, scientific data management and visualization, higher order logics, and neural networks. These curricular innovations specifically target non- Ph.D. granting institutions. Two interdisciplinary Evergreen programs will serve as prototypes: (1) the software engineering of scientific applications, and (2) advanced studies in theoretical computer science, mathematics and cognitive science. Expected outcomes of the work are three-fold: (1) Course materials such as syllabi, workshops, and case studies; (2) A model for non-Ph.D. granting institutions for initiating programs of excellence in advanced computer science; and (3) A model for disseminating computer science curricular innovation. Incorporated in the project are a number of activities designed to increase the participation of women and minorities, including special efforts with Native Americans. Dissemination is effected through workshops, designed in conjunction with the Washington Center and conducted jointly by OGI researchers and Evergreen faculty. Workshops addressing course materials will be offered first on a regional basis, using proven methods for curricular innovation. Later, national workshops will address the curricular innovations developed as well as the development, assessment and regional dissemination of those innovations. ***